"EARTHNEWS" SCIENCE RADIO FEATURE

The California Academy of Sciences produces a science news radio feature "EARTHNEWS" which has aired daily on twelve radio stations in California for nine years. "EARTHNEWS" is a background to regular news and provides in-depth interpretation of science and environmental events to assist the public in understanding what they hear or read. In response to a very large volume of mail from listeners, a quarterly newsletter was created four years ago to announce program schedules, enhance the information presented on the radio, and offer scientists and teachers a written forum for sharing ideas. Positive response from the listening audience suggests that this feature has tremendous potential for reaching a broad national audience. The Columbia Broadcasting System has agreed to air three 60-second "EARTHNEWS" features each week and to distribute these features nationwide via satellite. A total of 156 features will be produced annually, each reaching an estimated national audience of twelve to fifteen million people. The California Academy of Sciences is requesting funding for program research and production to develop this national radio program and to continue production of the newsletter.